International Group Travel to IARP Workshops. August 2003 to September 2005

The international Advanced Robotics Project (IARP) is an international organization,
consisting of fourteen countries and the European Union, devoted to monitoring and
promoting robotics related technology and utilization. The United States helped to
formulate this organization and has been an active member participating in technology
evaluations, workshops, and joint study missions. Participation involves US technical
experts traveling to various functions, and interacting with their colleagues to discuss
ongoing research and developing technology relating to intelligent machines. This grant
provides the mechanism to insure that the selection process and procedure for selecting
participants is fair, efficient, organizationally viable.
OBJECTIVES AND METHODS TO BE EMPLOYED
Since the IARP meetings are generally technology specific, the selection of US
participants must not only reflect the person's expertise but also his or hers ability to
communicate and interact with other participants. The selection process will be
performed by an ad hoc committee drawn from the IEEE, Robotics and Automation
Society. The traveler will receive reimbursement for expense but an honorarium will
only be provided in exceptional circumstances. This rule also applies to attendance at the
IARP, Joint Coordinating Forum (JCF) which is the management, planning, and policy
planning body. The representatives of member and observer countries attend this meeting
in one of the host countries. A detailed description of the host country's robotics program
is an essential part of the agenda.
INTELLECTUAL MERIT OF THE PROPOSAL ACTIVITY
Since NSF is the US representative to the IARP it is necessary to seek the best, and
most appropriate researchers to contribute to the intellectual output of the meetings. This
is a difficult and challenging task because the subjects under discussion at the Workshops
and the JCF require participation by a variety of individuals who are knowledgeable of
the specific technology. Their intellectual contribution is critical to the success of the
event and the ability of the outcome to advance the technology. In the past, contributors
have made excellent contributions, but a need now exists to help NSF to select new
people in a fair minded and knowledgeable manner. The Robotics and Automation
Society, representing 6000 members, is a logical choice to perform this selection by using
senior, experienced, and knowledgeable decision makers.
BROADER IMPACT RESULTING FROM PROPOSED ACTIVITY
The technical areas that the IARP deals with include medical robotics, personal
robotics, undersea robotic vehicles, and others having a direct societal impact. Recently
new Working Groups have been formed to consider safety and security technology and
other applications that are central to society needs. The quality of the United States
participation is essential to enhancing these Working Groups so that their deliberations
and results will help to promote the advanced concepts needed for success. The impact of
this contribution cannot be underestimated.